Conference on Assessment Practices in Statistics Education

9355860 Gal This proposal, "Conference on Assessment Practices in Statistics Education," was submitted to the Research in Teaching and Learning program as a conference proposal. The aim of the conference is to inform current programs for teaching education and statistics learning. The outcomes of the conference include the publication of preliminary guidelines and recommendations for education and a book on assessment issues in statistics education.